Microanalytical Studies of Extraterrestrial and Terrestrial Materials

9614212 Crozaz The research proposed will have two main thrusts: 1) the detailed study of circumstellar grains isolated from primitive meteorites and 2) trace element studies relevant to the origins of two types of meteorites (ureilites and aubrites) and of terrestrial mantle nodules. Both goals will be achieved with state-of-the-art analytical instrumentation. Isotopic compositions of circumstellar grains will be used to set constraints on nucleosynthetic processes in individual stars and provide information on the multiplicity of stellar sources that contributed materials to the solar system, while mineralogical and elemental data will be used to infer chemical and physical conditions in the stellar atmosphere and ejecta in which these grains formed. Trace element (mainly REE) ion microprobe studies of evolved meteorites and terrestrial samples will help to delineate planetary processes. Ion imaging will be used in an effort to identify the controversial (terrestrial contamination or indigenous) LREE carrier phase in ureilites. Analyses of experimental charges of aubritic compositions doped with lower levels of REE will be done in order to check if partition coefficients inferred from natural systems can be obtained under those conditions. Trace element concentrations of mantle eclogite and peridotite nodules will be done in order to provide insights into the formation of mantle materials, the structure and evolution of old cratons, and the differentiation of the early earth.